Applications of Qualitative Analysis of Nonlinear PDE's

9704874 Birnir The dynamics of surge, stall, and flutter in jet engines will be investigated using the qualitative theory of nonlinear partial differential equations ( PDE's). The Moore-Greitzer equations modelling the flow through a compressor will be used to analyze surge and stall. First it will be determined whether the dynamics are high or low-dimensional, then the bifurcation that causes stagnation stall identified and methods developed to control stall and surge. The results will be applied to the study of laboratory compressors and the analysis of laboratory data. A simple model for flutter in rotor (and stator) rings of blades is developed and used to study the possible flutter modes, then control strategies for these modes will be developed. This will first be done numerically and then analytically. Finally these methods will be used to study a realistic model of rotor rings and the real flutter modes and their bifurcations analyzed and methods developed to control them. The qualitative analysis of nonlinear PDE's will be extended to dimensions two and greater, numerically and analytically, first by studying damped and driven wave equations, and applications of the higher dimensional theory will be implemented. The purpose of the research is to help design jet engines that are lighter and can be operated more efficiently and safely than contemporary jet engines. These engines will be used in the airplanes of the 20th century and will make air travel faster, cheaper, and safer.